300 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Oklahoma will acquire a 300 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) the synthesis and characterization of liquid crystals; b) the synthesis, stabilization and applications of reactive organic moieties; c) the design and synthesis of chiral transition metal catalysts; d) the reactivity and synthetic utility of organotransition metal complexes; e) the structure and reactivity of metalloporphyrin-nitrosyl and -nitroso organic complexes; and f) the synthesis and characterization of group 13 organometallic compounds.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry.